Proposal on Pulse Shaping for Waves in Multiscale Media

Solna
0093992
The investigator analyzes how a propagating wave pulse
behave in a medium with rough variations. Predicting the
evolution of the wave pulse from information about the
`roughness' of the medium is a problem of deep mathematical and
practical interest, as is the inverse problem of deducing
information about the medium from measurements of a transmitted
pulse. Most often a detailed description of the (fine scale)
variations of the medium is not possible, only a description of
their statistical character. Hence, the investigator considers
the fine scale medium variations as a realization of a stochastic
process. This entails analysis of differential equations with
randomly varying coefficients. The project has three specific
objectives: First, obtain a characterization of the
transformation of sound pulses propagating in a medium with a
continuum of length scales, a medium defined in terms of a random
fractal. Second, extend and use theory about the transformation
of a wave pulse in some specific inverse problems, in particular,
high contrast seismic imaging and time reversal mirrors. Third,
derive strict bounds for how an electromagnetic pulse can be
affected by the medium heterogeneity without knowing the details
of these variations.
The main question the investigator addresses is: How does a
propagating wave behave in a medium that varies when the
variations are not small? For instance, when a laser beam
propagates through the turbulent atmosphere how is it affected by
intense, turbulent, variations in the local speed of propagation?
When such medium variations are smooth, say with a constant
speed of propagation, the problem is well understood. For rough
medium variations, as in the above example, the interaction of a
wave pulse with the medium heterogeneities is a fundamental yet
largely open question. This problem, predicting the evolution of
signal or wave pulse that propagates in a rough medium, is of
deep mathematical and practical interest. In addition to wave
propagation in the turbulent atmosphere there are many other
applications. In reflection seismology the earth's crust is
probed with a wave pulse and the reflected pulses are used to
infer knowledge about macroscale variations in the medium. It is
then important to know how the rough microscale variations in the
medium affect the probing pulse. Remote sensing, ocean acoustics,
and medical imaging provide similar examples. In communication
systems, it is important to be able to describe how medium
imperfections and variations affect the propagating signal. In
the theory of composite materials, it is important to optimally
construct a complex material so that it has some desired
propagation properties.